Presidential Young Investigator Award

This action is to recommend a Presidential Young Investigator Award for Dr. Christof Koch. Dr. Koch is one of the most outstanding young investigators in the rapidly developing field of computational neuroscience. He combines a deep knowledge of neurobiology with excellent mathematical skills and real expertise in computer science. He has already created a classic work on the computational of motion in the dendritic tree of retinal ganglion cells. His work on image segmentation is very fundamental. Finally, his studies on the detailed biophysics of the electrical interactions in neural spines is bringing a highly quantitative approach to the study of learning in the nervous system.